Determination of Thermal Conductivity of Green Powder Compacts Used for Self-Propagating High-Temperature Synthesis

9400077 Huque A two year experimental project has been proposed to generate a data bank for thermal conductivity of material which can effectively be used for modelling Self-Propagating High Temperature-Synthesis. Specific attention will be paid to the grain size effects in the compacts in green state. Special materials of interest would be the family of carbides, borides, silicides, sulphides etc. %%% The Principal Investigator has proposed to generate a data bank for thermal conductivity of materials which can effectively be used for modelling the Self-Propagating High-Temperature Synthesis. ***